Conference: 2026 Conferences for New Researchers in Statistics, Probability, and Data Science

The Committee on New Researchers of the Institute of Mathematical Statistics will hold its 26th conference at the University of Massachusetts Amherst during the three days prior to the Joint Statistical Meeting. The event will include oral and poster presentations by new researchers, plenary talks by established researchers, and open discussions on future directions for statistics, probability, and data science. There will also be panel discussions on teaching and mentoring, publishing, funding, and collaborations.

The New Researchers Conference serves as the flagship meeting for early-career researchers in statistics, probability, and data science. The primary objective of the conference is to provide a platform for interaction among new researchers and offer opportunities for mentorship from leaders in the field. This conference is explicitly aimed at developing the next generation of researchers in statistics and probability.